Applications of Visible and Ultraviolet Spectrophotometry Across the Chemistry Curriculum

New applications of visible and ultraviolet spectrophotometry are being introduced into the laboratories of the following chemistry courses: General Chemistry, Instrumental Methods, Physical Chemistry, Advanced Inorganic Chemistry, and Spectroscopic Methods.For the General Chemistry laboratory low- cost, single beam visible spectrophotometers are being interfaced to Macintosh computers currently being used for other applications in the laboratory. The resulting computer controlled spectrophotometer is giving students the capability to record visible spectra on a routine basis. Experiments are being introduced involving visible spectrophotometry in quantitative analysis, in the study of reaction kinetics, and in the study of transition metal complexes.For the upper level chemistry laboratories a high resolution, double-beam spectrophotometer is being used in experiments involving quantitative analysis, ultraviolet spectra of organic compounds, the study of reaction Kinetics, the study of coordination complexes, and the study of vibrational and rotational fine structure of molecular spectra.